Topological and Geometric Aspects of Tiling Dynamical Systems

Dr. Lorenzo Sadun will analyze several problems on the
topology and dynamics of tiling spaces. One problem concerns computing
the Cech cohomology groups of tiling spaces. Another problem is to find
criteria for when the natural translation action on a substitution
tiling space (or a deformation of such an action) is topologically
mixing. A third problem is to consider tilings of hyperbolic space,
where the natural group action is nonabelian and in that the group is
not amenable.

These problems are motivated by quasicrystals, a class of solids that
are highly ordered but are not crystals. Quasicrystals are modeled by
aperiodic tilings, and ergodic theory relates the bulk properties of a
quasicrystal (such as its ability to diffract light, its electrical
conductance, and its rigidity) to certain averages taken over a space of
possible quasicrystals, or equivalently a space of tilings. The better
we understand the abstract mathematical properties of tiling spaces, the
better we understand the down-to-earth physical properties of
quasicrystals and of other materials.